CAREER: Verifiable Specifications: Tools for Reliable Reactive Software Development

9984822
Bultan, Tevfik
University of California, Santa Barbara

CAREER: Verifiable Specifications: Tools for Reliable Reactive
System Development

Developing reliable software for reactive systems is a
challenging task. This project will focus on combining
and extending the results from two areas which address
this problem: 1) specification languages and 2) automated
verification methods for reactive systems. Building on the
recent results in these areas the goal of this project
is to develop verifiable specification languages. This
will involve research from two directions: 1) From the
verification side the goal is to extend the scope of
techniques such as model checking to make them applicable
to a wider set of systems. 2) From the specification side
the goal is to restrict the specification languages as much
as possible (without reducing their ability to specify
complex systems) in order to make their automated verification
feasible. This project will address both theoretical issues
such as complexity and efficiency of model checking
techniques, and practical issues such as investigating
usability of software specification languages and automated
verification techniques in practice. Automated verification
tools developed based on the results of this project will
also be used as educational tools in both graduate and
undergraduate courses on formal methods and programming
languages.